RUI: Problems in Geometric Analysis and General Relativity

The P.I. will study questions in geometric analysis arising both from physics (via the Einstein equation) as well as from geometry (geometric variational problems and scalar curvature). Initial data sets for the Einstein field equation satisfy a nonlinear elliptic system of equations, the Einstein constraint equations. The study of this system has proven to be interesting and fruitful for geometric analysis, and has shed light on the structure of the space of solutions to the Einstein field equation, which is of interest for physics. In previous joint work with R. Schoen, the P.I. developed deformation and gluing techniques for the constraint operator which have been employed (by the P.I. and others) to construct interesting initial data sets, and have led to a better understanding of the structure of asymptotically flat solutions of the constraint equations. Part of the project involves extending results on asymptotics and gluing, including construction of initial data modeling N-body configurations, to include certain matter models, and analyzing the extent to which some of the results that have been developed in the asymptotically flat setting can extend to the asymptotically hyperbolic case. The P.I. will also address several questions on the structure of small-data solutions of the constraints, and as well as on applications of localized scalar curvature deformation. In a second part of the project, the P.I. will continue the study of a variational problem in Kahler and symplectic geometry, the Hamiltonian stationary Lagrangian problem, building on recent joint work with A. Butscher. Another interesting variational problem, the isoperimetric problem (minimizing the area required to enclose a given volume), leads to questions on manifolds-with-density and on spaces relevant to general relativity amenable to research with undergraduates.

Solutions to the Einstein field equations are used to model gravitational radiation, strong field phenomena like black holes, isolated gravitational systems, and the large-scale structure of the universe. A more detailed understanding of the space of solutions to the Einstein constraint equations would yield a better understanding of these models. For instance, understanding the asymptotic structure of solutions to the constraints can yield information about models of gravitational radiation. Analysis of the constraint system leads to the construction of initial data with interesting properties, such as solutions in which two or more isolated systems are fused together into a connected solution of the constraints. It would be very interesting for the study of gravitational radiation to numerically implement constructions of small initial data with special asymptotics, and then numerically solve the Einstein field equations; similar comments apply to N-body configurations. An important aspect of the project is to introduce undergraduates to the connections between geometry, analysis and physics. Students will undertake research with the PI during the summer (occurring simultaneously with the Lafayette REU Site program, further enriching the summer research environment in the department), and during the academic year students will be involved in course work, independent study, and research with the PI.